Mathematical Sciences: Robust Estimation and Testing of Econometric Models for Panel Data

This award will support a collaborative effort in the areas of econometrics and statistics. In particular, the investigators will develop robust techniques for panel data. Panel data consist of a time series of observations on each of several individuals. Such data are used frequently in economics and certain biostatistical contexts. Standard methods for analysis of panel data are not robust to gross measurement errors in the data, and the results of analyses based on these methods can be highly sensitive to gross errors. This is well known to investigators who use panel data from sources such as the Current Population Survey. These investigators routinely use a variety of informal methods to "clean" the data before estimating models and testing hypotheses. The research proposed will proved formal methods for doing this. This award will support a collaborative effort in the areas of econometrics and statistics. In particular, the investigators will develop robust techniques for panel data. Panel data consist of a time series of observations on each of several individuals. Such data are used frequently in economics and certain biostatistical contexts.